A Mathematics Laboratory with a Cooperative Learning Component

A microcomputer mathematics laboratory is being established for use in courses for the first two years of college mathematics. Students are working with computer investigations of mathematics concepts in a laboratory situation. These investigations include the construction of mathematical processes and objects on a computer, the use of symbolic manipulation, and the use of graphics to foster cognitive development of understandings of mathematical ideas and concepts. In addition, an appropriate cooperative learning component for the laboratory and classroom settings is being developed. Research into how students learn mathematics, and into their attitudes about mathematics and the learning of mathematics is being conducted in this setting. Investigations are also being conducted into how the use of computer technology and an appropriate cooperative learning environment can enhance the learning of mathematics for a non-traditional population.